A Computer-Managed Laboratory for Physiological and Experimental Psychology

The purpose of the project is to develop a computer-managed laboratory for physiological and experimental psychology. One such system, developed in the psychology department, permits the precise programming of experimental events, the collection of data, and the analysis and display of results. It has been used to measure reaction times, GSR, EMG, heart rate, temperature and EEG. Because of increasing demands for time with this system, the psychology department plans to construct three more, one with enhanced capabilities for state-of-the-art student research. This enhanced model will be interfaced with a three-field projection tachistoscope and four biopotential preamplifiers for elaborate control of visual events and rapid tracking of evoked EEG activity across the cortex (among other uses). The tachistoscope and amplifiers can be divided to provide for simpler but simultaneous data collection using all the computers. This would be ideal for lab exercises in physiological and experimental psychology. The versatility and precision of this lab system should provide varied possibilities for directed student research, laboratory work in the methodology course, and classroom demonstrations in introductory psychology.